Cognitive Neuroscience of Mathematical Skill Development

The maturation of mathematical reasoning skills is a hallmark of human cognitive and academic development. Cognitive, developmental and educational psychologists have provided valuable insights into the complex and dynamic developmental changes in mathematical reasoning skills during childhood. The specific goal of our project is to investigate the development of mental arithmetic skills using a cognitive and systems neuroscience approach. This work has the potential to have broad impact on theories in cognitive neuroscience, brain and cognitive development and cognitive psychology. Findings from our proposed studies will inform the development of academic and educational programs for teaching mathematical and symbolic reasoning to children.